Conferences on Communicating and Assessing Innovative Strategies for Life Sciences Teaching to Undergraduates

The Coalition for Education in the Life Sciences (CELS), a network of life science professional organizations, is requesting support for three conferences in 1995, 1996, and 1997 on undergraduate life science education. These will be the CELS IV, CELS V, and CELS VI conferences. The conferences will emphasize assessment of educational programs, development of a life sciences electronic clearinghouse, dissemination of information about exemplary programs, and ways for improving faculty and graduate assistant teaching and course design. CELS IV will be held in June, 1995, at The University of Wisconsin, Madison; CELS V in 1996 at the University of Nevada, Las Vegas; and CELS VI will meet in Washington, DC. The conferences will be limited to 175 participants to promote interaction and CELS encourages faculty and administrators from the same institution to attend as teams. The format will include plenary sessions on broad topics like assessment, smaller break-out discussions and hands-on workshops, materials presentations and group discussions, and demonstrations that show effective teaching. The outcome will be teaching materials and conference proceedings, which will be disseminated through all the professional societies supporting CELS and a self-sustaining CELS network for ongoing work in this important area of undergraduate life sciences education.